Growth of Diamond and Cubic Boron Nitride Single Crystalline Films

This project on "Growth of Diamond and Cubic Boron Nitride Single Crystalline Films" addresses experimental and theoretical aspects of epitaxial crystal growth. The homoepitaxial growth of diamond films on different crystallographic surfaces of diamond substrates will be studied using electron cyclotron resonance assisted molecular beam epitaxy. The role of atomic hydrogen in stabilizing certain surface reconstructions and in removing graphitic co- deposits will be investigated, as well as electron and ion assisted growth and doping phenomena. Transport, optical, and recombination properties of the epitaxial films will be characterized. Defects will be studied by electron spin resonance, cathodoluminesence, and Raman spectroscopy, and correlations between defect concentration and growth rate will be investigated. The results of these fundamental studies are of importance to the potential use of diamond and boron nitride in electronic applications with capabilities beyond silicon-based electronics enabling improved device and circuit performance, and extending electronic/photonic applications to new areas such as sensor and processor utilization in the high temperature environments of automobile and jet engines, and for process control in manufacturing.